Nanoscale Characterization of Nanostructured Thin Film with Ultrahigh Strength and Ductility

New outstanding chemical, mechanical and physical properties are potentially exhibited in nanostructured materials. The nanostructured thin film with extremely high strength/ductility as well as fracture toughness can be very attractive for MEMS components and thin film coatings. Although mechanical behavior of bulk nanostructured materials has been investigated, there is lack of understanding on source of strength?Cductility and fracture as well as their fundamental relationships in nanostructured thin films. In order to design and process better thin film with ultrahigh strength, ductility and fracture resistance, novel nanostructured thin film processing and understanding on the source of strength and ductility in the films are important. Therefore, the research project is aimed at (1) developing a new fabrication technique to achieve better mechanical behavior (high strength and toughness) in nanostructured thin films for MEMS and coating application, and (2) understanding strengthening mechanism and fracture process in the thin films so as to identify a “gproper”h microstructure for best mechanical performance. The nanoscale characterization on the nanostructured thin film is expected to contribute to the advancement in nanostructured thin film and nanocharacterization.
The project will integrate research and education by (i) providing training for graduate and undergraduate students, (ii) course development on nanostructured thin films, (iii) increased participation of underrepresented groups into the research through current Minority Engineering Mentoring Program in University of Pittsburgh, and (iv) outreach to elementary school and exposure of young students to nanoscale science & technology through Internet explorers and Pittsburgh Carnegie Science Museum.